A Powder Technology Laboratory

Gabriel I. Tardos DUE 9551223 CUNY City College FY1995 $ 73,645 New York, NY 10031 ILI - Instrumentation Project: Engineering Title: A Power Technology Laboratory This project will develop and equipt an advanced laboratory for instruction and research in the field of Powder Technology. Several experiments will be developed with the new and upgraded instrumentation and will be integrated into the new Chemical Engineering elective option of Powder Technology, specifically into the "Unit Operations II" laboratory. The new and the upgraded instrumentation will be state of the art equipment and will be used for undergraduate and graduate instruction. Additionally, a piece of industrial equipment will be used as a demonstration unit in Freshman Engineering classes for all engineering students to show them the very different and peculiar behavior of powders as compared to gases and liquids. It is expected that the demonstration unit will convince and encourage students to pursue the powder technology option (elective) in Chemical Engineering and to enter this new and promising field of engineering.